Fully nonlinear elliptic and parabolic equations

This project concentrates on the study of special Lagrangian
equations, symmetric Hessian equations, Isaacs equations, complex
Monge-Ampere equations, and their parabolic versions (e.g., Lagrangian
mean curvature flows). The theory of regularity and solvability for fully
nonlinear uniformly elliptic and parabolic equations (with the convexity
condition in general dimensions and without the convexity hypothesis in
dimension two) is well developed. The concrete equations just listed
either do not satisfy the convexity condition or do not exhibit uniform
ellipticity or parabolicity. Only preliminary attempts have been made in
the general saddle cases. Substantial advances have been achieved for the
symmetric Hessian equations and the complex Monge-Ampere equations, yet
there is still no Schauder or Calderon-Zygmund theory for these equations;
and surprisingly the regularity problem for the quadratic symmetric
Hessian equations in general dimension still remains open. This project
seeks to address these fundamental issues.

Investigations into the aforementioned equations will further our
knowledge of two closely related mathematical fields, partial differential
equations and differential geometry. Moreover, the project will also have
impact on the areas where these equations arise. Special Lagrangian
equations and complex Monge-Ampere equations provide the mathematical
foundation for mirror symmetry in the string theory of modern physics,
which is a unified way to describe our physical universe. Solutions to
Isaacs equations lead to the optimal strategy for certain random
processes, for example, in engineering and finance. Hessian equations are
also related to nonlinear elasticity theory in mechanics, which studies
the mechanisms whereby a material that is stretched returns to its
original size and shape. Part of the research also involves participation
of graduate students.